Synthetic Studies in the Field of Natural Product Chemistry

9408247 Kishi The focus of this research will involve seven parts. The total synthesis and investigation of conformational changes of palytoxin, the conformational analysis of C- and O-glycosides, the conformational analysis of fatty acids and their derivatives, the structure elucidation and synthesis of AAL toxins and Fumonisins, the study of Ni(II)/Cr(II) mediated coupling reactions, the development of tripodal ligand chemistry and studies involving bioluminescence chemistry will all be carried out. %%% With this renewal award, the Synthetic Organic Program supports the research of Dr. Yoshito Kishi of the Department of Chemistry at Harvard University. Professor Kishi will focus his work on synthetic and conformational studies of complex biomolecules. ***